The Dynamics of the Citizens' Movement Against Drunk Driving

This study will provide systemic evidence about the institutionalization and transformation of the citizens' movement against drunk driving. It will contribute to our understanding of the role of citizen action in responding to social problems of wide community concern. Previously, the PI has been funded by NSF for three prior stages of the research. In 1990, he will survey all new local groups formed since 1986. Trends in group organizational structure, mobilization and efforts will be used to answer questions about social movement organizational careers, the dynamics of the relationship between media cycles and movement cycles, the changing gender composition of successful movements, and the effects of growing opposition.